The Cosmic Origin and the Galactic Evolution of Lithium

The objective of this research is to answer as directly as possible three closely related questions: (1) What is the cosmic origin of lithium? (2) Beginning soon after the big bang, how has the Galactic lithium abundance varied? (3a) During the main sequence lifetimes of stars with less than one Solar mass, what mechanism progressively and strongly destroys the atmospheric lithium which is initially present? and (3b) What presumably distinct mechanism similarly destroys lithium in a very narrow stellar mass range. Dr. Hobbs will measure a lithium line from stars in open stellar clusters, from hot, metal.poor dwarf stars, and from stars in the very young cluster NGC 2264. The origin and evolution of the element lithium has in recent years reemerged as an important and challenging problem in astrophysics. The problem impacts the discipline of cosmology through its connection to the process of nucleosynthesis in the big bang formation of the Universe. It has now become imperative to obtain, from observational data, information on the evolution of the abundance of lithium over the history of our Galaxy.